STTR PHASE I: Fabrication of Aluminum Matrix Nanocomposites

The Small Business Technology Transfer Research (STTR) Phase I project will develop a reliable and effective processing technique to produce a next-generation metal matrix composite comprised of aluminum oxide or silicon carbide nanoparticles dispersed in an aluminum alloy metal matrix. The proposed technology combines the merits of the traditional stirring method and the latest high-intensity ultrasonic processing technology. The use of an impeller stirrer creates a vortex to efficiently pull the lighter nanoparticles into the melt. The use of high-intensity ultrasonic vibration breaks up the nanoparticles clusters and disperses the nanoparticles into the melt.

The successful completion of the Phase I project will lead to a breakthrough technology for the processing of metal matrix nanocomposite materials and for the utilization of lightweight materials for applications at elevated temperatures and critical conditions. The technology can be used to reinforce aluminum, magnesium, or other lightweight materials for replacing iron, steel, or titanium components for automotive, power transmission, aviation, and defense applications, leading to significant energy savings, cost savings, and environmental benefits. The U.S. transportation industry continues to focus on the increased use of lightweight alloys for weight and energy savings.